Postdoctoral Fellowship: MSPRF: Newton Polygons and Higher Quasi-F-Injective Singularities

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such as Artificial Intelligence and Quantum Information Science, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Jack Garzela is “Newton Polygons and Higher Quasi-F-Injective Singularities”. The host institution for the fellowship is the University of Illinois at Chicago and the sponsoring scientist is Kevin Tucker.